NSF Student Travel Grant for the 2018 Symposium On Usable Privacy and Security (SOUPS)

The Symposium On Usable Privacy and Security (SOUPS) is the top conference devoted to usable privacy and security. It brings together an interdisciplinary group of researchers and practitioners in human computer interaction, security, and privacy. The program features technical papers, workshops and tutorials, a poster session, panels and invited talks, and discussion sessions. The 14th SOUPS will be held August 12-14, 2018, in Baltimore, MD, co-located with USENIX Security. This award supports student travel to the conference.